An Integrated Undergraduate Program on Semiconductor Devicesfor Power Flow Control

This award, for $390,000, is for the development of integrated undergraduate educational programs on semiconductor devices for electric power flow control. The award is motivated by deregulation in the power industry and concomitant needs for flexible AC power flow control. At the distribution level, the semiconductor revolution has penetrated power levels which make adjustable speed drives and other forms of power flow control possible. Despite great advances in applications of semiconductors in power engineering, there is an absence of educational efforts (courses, texts, software) which integrate topics in semiconductor device physics with power electronic circuits and power distribution systems.